PU(2) monopoles and gauge theoretic invariants

Thomas G. Leness

The goals of this proposal, to be done in collaboration
with P. Feehan, are to prove Witten's conjecture relating
the Donaldson and Seiberg-Witten invariants of smooth
four-manifolds, to understand the relation between
the conditions of Seiberg-Witten simple type and
Kronheimer-Mrowka simple type, and to search for possible
topological constraints on these invariants. This work
will be carried out by exploring the moduli space of PU(2)
monopoles which contains a moduli space of anti-self-dual
connections and the moduli spaces of Seiberg-Witten
monopoles for certain Spin C structures. This implies
that the Donaldson invariant can be expressed as a sum,
over these spinc structures, of an expression given by
pairing certain cohomology classes with the link of the
moduli space of Seiberg-Witten monopoles in the Uhlenbeck compactification of the moduli space of PU(2) monopoles.
The first phase of this work is to complete the proof
that the pairing of these cohomology classes with the
link of the moduli space of Seiberg-Witten monopoles can
be expressed in a universal form depending only on the
Seiberg-Witten invariant and the homotopy type of the
manifold. This work will also yield a proof of the
Kotschick-Morgan conjecture on wall-crossing formulas
for Donaldson invariants. The second phase of this work
is to calculate this universal form in sufficient detail
to allow the computation of the explicit relation between
the Donaldson and Seiberg-Witten invariants. We intend to
do this calculation by using known surgery formulas for
both invariants (e.g. blow-up formulas), examples where
both invariants are known, and some internal symmetries
of the sum mentioned above. It is possible that this
relation between the Donaldson and Seiberg-Witten
invariants is over-determined and thus will reveal
constraints on these invariants given by the topological
type of the four-manifold, as was done in earlier work
with Kronheimer and Mrowka.

An n-dimensional manifold is a topological space that
locally looks like n-dimensional Euclidean space.
Manifolds are important objects to study because they
are ubiquitous: the solution set of k equations in
n variables will usually be an (n-k)-dimensional manifold.
The main tools for distinguishing between four-dimensional
manifolds are the Seiberg-Witten and Donaldson invariants.
Thus, understanding the relation between these invariants
is crucial to an understanding of four-dimensional
topology. In addition, the conjectures relating these
invariants arise from Witten's work using quantum field
theory. These methods of quantum field theory are not
mathematically rigorous, so our mathematically rigorous
proof of Witten's conjecture can be viewed as an extremely
inexpensive form of experimental physics.